Presidential Young Investigator Award - REU Supplement

The Principal Investigator (PI) intends to study the biological limitations of expression systems used in the production of pharmaceutical proteins, initially focusing on yeast as a model organism. The development of stable high copy number recombinant vectors and hyper-secreting mutations in yeast are primary goals. Achieving these aims will require fundamental research into the molecular biology of amplified genetic elements and heterologous protein secretion. The PI's approach to these problems will combine the analytical tools of traditional chemical engineering with the experimental techniques of molecular and cellular biology.